Connection to NSFNet

This award enables Loyola College in Maryland to connect to NSFNET through a 56,000 bit per second link to the mid-level network SURANET, the Southeastern Universities Research Association Network. Access to NSFNET provides the faculty and students with access to supercomputers, data archives, a variety of network gateways, automated library catalogs, and a wide range of software. Primary applications include file transfers, electronic mail communication between local and remote researchers, and remote login to and use of supercomputers and other research facilities. The shared Loyola/College of Notre Dame Library will also be accessable to other users on the Internet.